Highly State-Resolved Studies of Shape Resonant Ionization

9315857 Poliakoff In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Erwin Poliakoff of Louisiana State University will pursue highly resolved studies of resonant photoionization using synchrotron radiation as the excitation source. The deposition and partitioning of energy in the product ions will be determined from dispersed fluorescence. Highly resolved data are thus accessible over a broad electron energy range to help elucidate the photoejection dynamics. These data will be applied to systems which are vibrationally resolved for polyatomic targets and rotationally resolved for diatomic molecules. %%% In the experiments performed in this project, the motions that electrons make when molecules dissociate under the influence of high energy light will be correlated with the motions of the nuclei. The light used in these studies will come in part from a synchrotron radiation source at Louisiana State University. The data acquired in these studies is inaccessible by other techniques and will be used to guide and shape theoretical models for these processes. ***